Quantum Chromodynamics and Electroweak Physics

9507683 Tung Quantum Chromodynamics or QCD is the generally accepted theory of the strong interactions. There are a variety of important parameters such as the constituent's particles momentum distributions, etc., that need to be determined before accurate predictions can be made about the results of high energy experiments. This research seeks to address such questions and to propose experimental tests for exploring scattering mechanisms in high energy collisions at present and future accelerators. The research also will address questions in the symmetry breaking of the electroweak interactions. ***